Research Experiences for Undergraduates in Chemistry at the University of Washington

Dr. Darrell J. Woodman and other members of the Chemistry Department of the University of Washington are being supported to continue a Research Experience for Undergraduates (REU) site in chemistry. For the period 1995-97, ten undergraduate students will spend nine weeks each summer actively engaged in a variety of research projects. Participants select projects from a broad range of fields including analytical, bioorganic, biophysical, environmental, inorganic, organic, organometallic, and nuclear chemistry and chemical physics. The participants, half of whom are from smaller schools in the region, also enjoy a special seminar series, `Contemporary Issues in Chemistry.`